Theoretical Research on the Terrestrial Exosphere

This is a renewal project for the continuation of research on the terrestrial exosphere. A new Monte Carlo exosphere simulator has been developed, capable of converting the best available thermosphere, ionosphere, and plasmasphere information into a realistic, time dependent exosphere model. The present version of the UTD exosphere simulator (with slight refinements) will be used in the continued study of specific exosphere problems. ***